I-Corps: A Mobile-Based Opioid Overdose Alerting System

The broader impact/commercial potential of this I-Corps project is to develop a smart wearable monitor capable of delivering clinical-grade measurements of lung function (e.g., tidal volume, forced expiratory volume, minute ventilation, etc.). However, while suitable for in-hospital care, the current solutions present drawbacks in the delivery of telecare and self-management. The value proposition of this project is to present a non-invasive continuous pulmonary function monitor for persons with an acute or chronic respiratory illness to self-manage, monitor, or prevent exacerbations of their illness. This monitor would be implemented as a stretchable, wearable sensor that estimates changes in the size of the ribcage from breathing. The development of such a technology has significant potential for reducing fatal opioid overdoses, asthma- and COPD-related emergency department visits, and support pulmonary rehabilitation delivered via telemedicine.

This I-Corps project aims to explore the commercial potential for a wireless single-band stretchable silicone sensor, which when worn around the chest is capable of measuring tidal volume from which other measures of lung function can be derived (e.g., forced expiratory volume, minute ventilation, etc.). Currently, lung function testing, spirometry, capnometry, respiratory inductance plethysmography, and pulse oximetry are the clinical standard for vital monitoring and assessing lung function. Until now, respiratory inductance plethysmography monitors, which requires two bands – a chest-worn and abdomen worn band, is the least invasive technology for tidal volume monitoring. Pulse oximetry is an inferior technology for the early detection of respiratory distress (or colloquially, shortness of breath) because changes in oxygenation take time. In contrast, for example, respiratory depression can be quickly detected by changes in tidal volume. However, capnography and respiratory inductance plethysmography monitors, which are capable of monitoring tidal volume, are cumbersome and ill-suited for use outside a clinical setting.New evidence has now demonstrated that by measuring the change in circumference of the ribcage, you can estimate tidal volume with high fidelity using a stretchable sensor capable of confirming to the body. Integrating this sensor technology into a wearable device with a wireless sensor module has the potential to unlock new avenues for telehealth monitoring and delivery.